Computer-Aided Geometric Design and Computational Geometry of Geometric Constructs Defined by Line Geometry

Most computer-aided design systems define surfaces as doubly infinite families of points. Using point geometry allows only two geometric constructs: curves and surfaces. Using lines as the basic building block of space is more flexible for shape generation and design since line geometry allows the definition of three types of geometric constructions. This research focuses on the development of the mathematical foundation for computer-aided design of products based online geometry. The fundamental idea is to use lines, rather thanpoints, as the fundamental building block of geometric shapes. The three geometric constructs defined in a line geometry are ruled surfaces, line congruences, and line complexes which are one, two, and three parameter families of lines respectively. This research will study the computational geometry of these three geometric constructs and,in addition, develop a general framework for computer-aided design based on line geometry.